National Invitational Symposium: Improving Math and ScienceEducation in Urban Schools, A Systemic Approach

The purpose of the proposed project is to design and convene an invitational working symposium on systemic efforts needed to improve math and science achievement in the nation's largest urban public school districts. The symposium's participants include Superintendents, Board of Education members, and specialists in research, curriculum and technology from the nation's Great City School districts; and representatives from teacher organizations, universities, state education departments, and national associations. Topics at the day-and-a-half symposium will include "Barriers to Higher Math and Science Performance in Urban Schools", "Model Urban Schools Programs in Math and Science Education". The Roles of Community Agencies and Others in Improving Math and Science Education in Urban Schools", "The Ideal Urban School Program for Math and Science Education Improvement: What would It Look Like?", "Meshing Systemic Urban Reform to Improve Math and Science Education with State Reforms". and "Changing the System in Urban Education:Reform from Top to Bottom to Improve Math and Science Achievement". The proceedings of the symposium and accompanying recommendations and work-plan for improving math and science achievement in urban schools systemically will be published and circulated to the nation's major city public school systems and others.